Developing Further Concepts and Design Procedures for Deployable Structures

Deployable-collapsible structures have many potential applications, ranging from emergency shelters and facilities, through relocatable, semi-permanent structures, to space-station components. Combinations of regular pentagons and hexagons have already been shown to be feasible. All of these concepts now need to be combined into a set of design tools that can build and test generalized geometric models for multi-panel "clicking" deployable structures. Such a tool would be a CAD system which could propagate the constraints of adjacent modules to an attachment. This tool would then generate the model for both deployment and in- service analysis and design. //